DLI-Phase 2: Re-inventing Scholarly Information Dissemination and Use

This Project is a component of the InterLib collaboration between University of California at Berkeley, the University of California at Santa Barbara, and Stanford University. The combined interLib technologies will be demonstrated on the emerging California Digital Library (CDL), and on a testbed developed by the San Diego Supercomputer Center.

The Project will attempt to develop tools and technologies that support highly improved models of information dissemination and access. A goal is to facilitate moving from the current centralized, discrete publishing model, to a distributed, continuous, self-publishing model, while at the same time preserving and enhancing the best aspects of the current model. In the envisioned model, information can be disseminated prior to publishing; it can be disseminated and composed continually; it will also have a significant non-textual data component. The model is consistent with the changing economics of academic publishing, yet has the potential to drastically alter the cost structure of scholarly information dissemination.

To promote such an improved paradigm, it is planned to (i) develop a set of enabling technologies, (ii) develop related technologies that exploit the paradigm to support functionality not readily available in the traditional model, (iii) experimentally develop publishing models and digital collections in line with the new paradigm, (iv) conduct studies on economic models of alternative information paradigms, and (v) conduct user studies to help evaluate the impact of the work.